Industry/University Cooperative Research Center for Measurement and Control

ABSTRACT University of Tennessee: EEC-9634522 The Industry/University Cooperative Research Center for Measurement and Control Engineering focuses on the theoretical and practical developments in industrial measurement and control, with a concentration on areas that will significantly improve the productivity, reliability and safety of industrial systems and processes in a cost-effective manner. This award provides funding to the University of Tennessee for one year.